U.S.-Japan Cooperative Research: Coalbed Methane Recovery

9315445 Bodily This award supports a two-year cooperative research project between Professor David Bodily, Department of Chemical and Fuels Engineering, University of Utah, and Professor Kiyoshi Higuchi, Department of Mineral Resources, Hokkaido University, Sapporo, Japan. The focus of the project is on methane recovery from coal beds. The investigators will exchange information on the measurement of coal seam methane content, perform tests to compare measurements under the same conditions with each group's equipment, and construct a model to simulate methane recovery. ***